CIVL: A Concurrency Intermediate Verification Language

Parallel programming has become increasingly common with the advent of
"multi-core" computer chips that pack many processors into a single
chip. Most standard laptop and desktop computers now come with anywhere
from two to thirty-two such cores. Such chips offer unprecedented computing power, but at a price: to
extract their full potential, programmers writing software for the new
chips must use special programming language "libraries" in order to
specify how the program is to do two (or more) things at once. One
popular such library is called OpenMP. These so-called parallel
programs are notoriously difficult to get right, and many contain
undetected defects ("bugs") that can cause the program to crash or
produce incorrect results.

The CIVL project has the potential to dramatically reduce the effort
required to develop new static analysis tools. The key idea is a
unified language for describing parallel programs, whether these use
MPI, OpenMP, or both. One tool translates the original program into
the new language, also called CIVL. Other tools perform static
analysis on the CIVL program. Eventually, many other parallel
libraries will be added to the new system. The advantage of this
approach is that the designer of a new static analysis tool need only
design the tool for a single language---CIVL---but then gets a tool
that works on all the source libraries "for free". Similarly, when a
new parallel library comes along, by developing a translator from it
to CIVL, one can immeidately reap the benefits of all the static
analysis tools. The researchers expect that the resulting platform
will make it much easier to develop correct parallel programs, no
matter how that parallelism is expressed.